PECASE: Growth Control Regulated by p53 and MDM2

9722262 Bargonetti This career proposal is integrating laboratory experiences and research into undergraduate and graduate programs for students at Hunter college. This investigator is studying p53 as a cell cycle check point factor. The undergraduate students will examine the effect of p53 on the growth curves of mammalian cells in culture, and look at the effects of p53 on transcriptional activation. The graduate students will look at the distribution of p53 during the cell cycle in cells before and after induced DNA damage, and also look at the DNA binding properties and phosphorylation state of p53. These studies will provide information on how p53 controls cell growth. %%% This career award is combining the research with the training of undergraduate and graduate students at Hunter College. Since Hunter College is a minority institution, a number of underrepresented minorities will be trained in this research which will provide important information on how a protein, p53 acts to regulate the cell cycle. ***